Extraordinary Women Engineers

The goal of this engineering education project entitled EXTRAORDINARY WOMEN ENGINEERS (EWE) is to encourage more academically prepared high school girls to consider engineering as an attractive option for post-secondary education and subsequent careers in order to increase the number of women who make up the engineering workforce. Specific project objectives are to: 1) mobilize America's more than one million engineers to reach out to educators, school counselors, and high school girls with tested messages tailored to encourage participation in engineering education and careers; 2) help high school counselors and science, math, and technology teachers to better understand the nature of engineering, the academic background needed to pursue engineering, and the career paths available in engineering; 3) equip high school counselors and teachers to share this information with students, especially girls; and 4) reach out to girls directly with messages that accurately reflect the field of engineering and will inspire girls to choose engineering.

The WGBH Educational Foundation has partnered with the American Association of Engineering Societies (AAES), American Society of Civil Engineers (ASCE), and a coalition of more than 50 of the country's engineering associations, colleges, and universities to fundamentally shift the way the engineering and educational communities portray engineering. Based on a needs assessment performed in 2004, the EWE coalition embraces a communication strategy that focuses on the societal value and rewards of being an engineer, as opposed to the traditional emphasis on the process and challenges of becoming an engineer. This project represents a nationwide outreach effort that includes training opportunities for engineers; targeted Web-based and print resources for students, school counselors and teachers, and engineers; and a range of outreach and marketing activities.